SUPER STEM Education

The SUPER (School-University Partnership for Excellence in Research-based) STEM Project is a partnership between the Baltimore County Public Schools (BCPS) and the University of Maryland Baltimore County. SUPER STEM activities are built on a foundation of past work between the district and the university. The project focuses on increasing student achievement, especially that of low-performing students, and targets low-performing schools. Located in the suburban region around Baltimore, BCPS enrolled 107,322 students during the 2001-02 academic year. The County population is rapidly shifting in ethno-racial characteristics such that the most recent census indicates that White residents in the county have decreased from 84.9% in 1990 to 74.4% in 2000. Within BCPS, 33.7% of the students are African American, 59.7% are White, 4.0% are Asian American, and 2.0% are Hispanic.

To achieve its MSP-aligned goals, SUPER STEM will:
1. Establish Visiting STEM Scholarships to attract talented scientists and educators to accelerate the development and teaching of new curricula;
2. Provide weekend and summer accelerated academic coursework for the lowest-performing students and schools;
3. Create STEM Academies in the lowest-performing schools;
4. Expand the UMBC Urban Education Principal, Teacher and Intern Scholarships to recruit and retain the most talented STEM educators to lowest-performing schools;
5. Provide over 100 hours of STEM training to roughly 1800 teachers; and
6. Conduct ongoing, hierarchical, multi-method longitudinal student and teacher achievement analyses, performance assessments, and work sampling.